A Proposal to Acquire High Resolution Solids NMR Capability at the University of Florida

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at University of Florida to acquire a 400 MHz nuclear magnetic resonance (NMR) spectrometer with solids and imaging accessories. This equipment will enhance research in a number of areas including the following: (1) synthesis of photoactive transition metal-containing polymers, (2) dynamics and ordering of confined molecular systems, (3) synthesis of solid acids and characterization by NMR and `Cal-ad`, (4) the interaction of fluorinated molecules with metal oxides, (5) microporous solids: clathrates and zeolites, and (6) molecular motion in biomolecular solids. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.